Purchase of X-ray tubes and upgrade of X-ray spectrograph automation

This award provides funding to upgrade the automation of an old, but serviceable, X-ray spectrograph operated in the Department of Geology-Geography at the University of Massachusetts in Amherst. The instrument is the backbone of the Regional X-Ray Analytical Facility at the University of Massachusetts which serves the research needs for multi-element chemical analysis of rocks and minerals of the geochemistry community in much of New England.